POWRE: Quantitative Approaches for the Conservation of Interaction Biodiversity

ABSTRACT

Andelman, Sandy J

DEB 0074676

The goal of this research is to develop new approaches and guidelines for conserving "interaction biodiversity." Interaction biodiversity refers to the myriad ways in which pairs and groups of species interact with one another - both within and among populations - as well as to the diversity of outcomes elicited by these interactions. Despite growing concern over the loss of interaction biodiversity and its potential evolutionary and ecological consequences, traditional approaches to reserve network design are based primarily on species-level and ecosystem-level considerations. Most conservation decisions are intended to minimize or prevent the extinction of species or the loss of ecosystem function. The view is that if we worry about species and ecosystems, the interactions will 'take care of themselves.' The PI will use a combination of ecological and evolutionary theory and empirical data to develop guidelines for conserving interaction biodiversity and to increase understanding of the potential consequences of species and ecosystem-level decisions for species interactions.